Conference: STAI-X 2026: Conference on Statistics and Trustworthy AI for Cross (X)-Domain Acceleration

The STAI-X 2026 Conference (https://statsupai.org/STAIX2026) will be held on July 31 to August 1, 2026, at Harvard University, Cambridge, MA and co-hosted by the Departments of Biostatistics and Statistics. Centered on the Statistical and Trustworthy AI for Cross (X)-Domain Acceleration (STAI-X) initiative, the conference will bring together statisticians, computer scientists, and domain scientists to foster new interdisciplinary community advancing research at the intersection of statistics, artificial intelligence, and domain sciences. Emphasizing collaboration across disciplines, the conference aims to promote methodological developments and accelerate scientific discovery at the interaction of statistics, trustworthy AI and applied sciences. STAI-X 2026 will implement an innovative conference model featuring peer-reviewed proceedings, short courses, data challenges, and community engagement activities. Through conference proceedings publications, educational programs, and collaborative research activities, the conference will extend its influence well beyond the conference itself.

The intellectual merit of STAI-X 2026 lies in advancing the statistical foundations of artificial intelligence and fostering the integration of statistics, AI, and domain sciences to address complex scientific challenges. The conference will serve as a forum for disseminating state-of-the-art methodological developments, identifying emerging research directions, and promoting cross-domain collaborations that enhance the rigor, trustworthiness, and societal impact of AI-driven solutions and discoveries. Through peer-reviewed proceedings publications, STAI-X 2026 will enable the timely dissemination of new research findings. STAI-X 2026 will provide training opportunities to the next generation of interdisciplinary researchers through short courses, data challenge competitions, and opportunities for early-stage scholars to present their work, contributing to interdisciplinary training and workforce development at the interface of statistics and AI as well as domain science applications. The conference website is https://statsupai.org/STAIX2026/index.html.